US-India Planning Visit: International Applied Mathematics Cooprative Program in Biomedical Engineering

0000559
Collins

This award supports a planning visit for Professor Richard Collins, Wright State University to travel to the Indian Institute of Technology (IIT), Chennai. During this ten-day visit, Collins and Megha Singh, Department Head for the Biomedical Engineering Division, IIT will hold a series of discussions with senior researchers in order to develop research protocols for a multi-year program of scientific and technical cooperation between their institutions.